Biomedical Instrumentation Laboratory

This project provides undergraduate students at this institution with a hands-on experience in biomedical instrumentation. The laboratory that supports the project includes equipment such as: force transducers, EKG machines, sphygmomanometers, magnetic and ultrasonic flow meters, and A/D and D/A converters. Experiments in this laboratory familiarize students with the underlying physiological principles, the application of biomedical instruments, and the installation, calibration, inspection, preventative maintenance and repair of biomedical equipment. This award is being matched by an equal sum from the grantee.